Materials Research Science and Engineering Center

9809423
Doyle
The Materials Research Science and Engineering Center (MRSEC) at the University of Alabama carries out a vigorous program on materials with potential applications in ultra-high density data storage. Two interdisciplinary groups investigate thin films and particulate materials, respectively. Of particular interest in thin films are fundamental studies of magnetotransport, nanoscale surface studies, the investigation of high speed magnetic switching phenomena, as well as nanoscale tribological studies. In the area of particulate materials the focus is on potential applications in flexible (tape and floppy disk) storage media. Investigations include the synthesis of small, orientable magnetic nanoparticles, and the characterization and simulation of the microstructure of magnetic particle dispersions. The Center has an educational outreach program to high school science teachers and has very strong links with the information storage industry.

Participants in the Center currently include 10 senior investigators, 4 postdoctoral associates, 8 graduate students, and 1 support person. Professor William D. Doyle directs the MRSEC.